Some elliptic and hyperbolic problems arising in mechanics

Chen
DMS-0908663

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5). The investigator
studies some mathematical models that occur in three specific
areas: electromagnetism, solid mechanics, and fluid mechanics.
In the first project on electromagnetism, the investigator and
his collaborators establish an identification of the self-dual
Chern-Simons vortices, as well as study the electric and magnetic
effects on the stability of the dually charged vortices. The
second project concerns the dynamics of gel swelling. The
mathematical construction of well-posedness of classical and weak
solutions is proven in the context of hyperbolic conservation
laws. The third project involves the well-posedness and
stability of various nonlinear dispersive equations arising from
solid and fluid mechanics. Methods of mathematical analysis are
the primary tool employed in the investigations.

Physical phenomena are usually well modeled via nonlinear
partial differential equations. Such equations are exceedingly
difficult to study, both theoretically and numerically, yet their
understanding is important to further progress of many areas of
physics and engineering. One of the objectives of this project
is to study the behavior of electrically and magnetically charged
particles in the classical field theory. Another objective
concerns the study of soft condensed matter, which is relevant to
drug manufacturing and bacterial motility. The third objective
is to understand a new type of transonic wave arising in solid
mechanics, which is different from the context of transonic flow
in gas dynamics. The fourth objective is to study water waves
that may occur in the ocean that are affected by the earth's
rotation, and to understand how they can form tsunamis and how
they can become turbulent. The results of this project
contribute to the identification of physical problems of great
scientific importance that offer new opportunities for the
integration of applied analysis in research and in the training
of graduate and undergraduate students.